Development of Liberal Engineering Options for Electrical an Computer Engineering

A curriculum based in Electrical and Computer Engineering (ECE) is being developed which allows students to pursue "liberal engineering" options or to complete a more traditional ECE curriculum. The primary liberal engineering option is a new major within the ECE department which involves only 40 credit hours similar to those of physics, math, or chemistry majors. The new major, "Electrical and Information Sciences," is offered in parallel with the more traditional programs in Electrical Engineering and Computer Engineering. The heart of this program is a set of sophomore courses patterned on the "Just in Time" concept. Prototype versions of these courses are being taught as a pilot program. If successful, these courses will replace existing sophomore-level courses for all ECE undergraduates.